Postdoctoral Research Fellowship in Biosciences Related to the Environment

This action funds a National Science Foundation Postdoctoral Research Fellowship in Biosciences Related to the Environment for 1996. The fellowship supports research and training in the area of prokaryotic genetics. The title of the research and training plan is "Identification of genes involved in environmental and physiological stress resistance of Pseudomonas fluorescens." Soil bacteria grown to stationary phase in culture are more tolerant to environmental and physiological stresses than are exponentially-growing cells. Sigma factor serves as a central regulator of stationary-phase gene expression in E. coli. This study focuses on Pseudomonas fluorescens in which a gene coding for sigma has recently been cloned. Genes preferentially expressed by P. fluorescens in stationary phase will be identified. These studies will expand the current knowledge of genetic factors involved in bacterial stress response and contribute to our understanding of the molecular basis of interactions between a soil bacterium and its physical environment.